Implementing Program Theory Across Informal Environmental Education Providers -- A Planning Grant

The goal of this Planning Grant is to use program theory as a tool in two informal science education communities and compare the processes and models that result. Program theory is built on the principle that learning and social behavioral change is the result of the cumulative effect of multiple programs, rather than a single experience. The participating communities are the Tucson Association of Museums (TAM) and the Terrific Resources for Environmental Education (TREE) organization in Columbus, Ohio. Each organization will work collaboratively using cross-group program theory and logic modeling to initiate a discussion on program planning and an intra-group evaluation. It is anticipated that this project will result in collaborations between the Tucson and Ohio informal science education communities and the creation of a plan for evaluation of the processes involved with this work.